Sixth Conversation Biomolecular Stereodynamics, State Univeristy of New York, Albany, June 6-10, 1989

The Sixth Conversation in Biomolecular Stereodynamics will be held in June in SUNY/Albany. Started in 1979, then repeated in 1981, 1983, 1985 and 1987, the conference has become a main event to discuss and debate the developing ideas and discoveries in the broad context of biological structure, dynamics, interactions and expression. Over 500 scientists from 14 countries participated in the last meeting. The following areas will be covered: 1) human geonome initiative; 2) recombination and resolvase; 3) molecular dynamics of biological macromolecules; and 4) structure, dynamics, interactions and expression of biological macromolecules. Every effort will be made to devote a significant part of the time to talks by graduate students, postdoctorals and young faculty. The main lectures will be published within a year of the meeting as the Proceedings of the Sixth Conversation.***//